An Improved IGEX 76Ge Double Beta Decay Experiment with Pulse Shape Discrimination

The collaboration of Prof. Avignone in the International Germanium Experiment (IGEX) is supported by this grant. The objective of IGEX is a determination of the half-life for zero-neutrino double-beta decay in Ge-76 and, as a by- product, measure precision spectra for two-neutrino double- beta decay which will constitute a background for other exotic decays. The observation of zero-neutrino double-beta decay would require the neutrino to have a finite mass and the detectors in this experiment should be able to push the neutrino mass limit well below 1 eV.